Pacific Rim Conference on the Roles of Shear and Diffusion in the Formation of Plate-Shaped Transformation Products, Kona, Hawaii

This action supports a phase transformation conference to address the controversial roles of shear and diffusion in the formation of plates that are not the product of a martensitic transformation. The conference will be held in Hawaii, 18-22 Dec 1992. The conference site was selected to enable a wide selection of participants. Transmission electron microscopy and analytical microscopy offer new information on this type of phase transformation. Critical experiments are covered and recent evidence argued. The conference creates a framework that incorporates several features of the current possible transformation mechanisms. The Proceedings of the conference are to be published in the archival literature. %%% Phase transformations are inherent to the development of appropriate microstructures in engineering metallic alloys. This conference addresses a type of transformation common to both ferrous and nonferrous alloys.